SBIR Phase I: Adaptable Ad Hoc Network Architecture for Rapid Infrastructure Development in Disaster Zones

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is reducing the cost of getting people online and connecting people in emergency situations such as natural disasters. Natural disasters often destroy cellular networks, exactly when people need communication the most. The influx of users on the limited remaining infrastructure often overwhelms existing resources, making it impossible for first responders to coordinate, for families to call their loved ones, and for volunteers to help. In other potential markets, the technology seeks to provide cellular phone access to parts of the world where it is now prohibitively expensive. This project seeks to develop small, portable cellular base stations that can provide access in both emergency and hard to reach and poorly resourced locations.

This Small Business Innovation Research (SBIR) Phase I project researches and implements a small, portable cellular base station. The technological focus for the base station utilizes Global System for Mobile Communications (GSM) / General Packet Radio Service (GPRS) (or 2G and 2.5G) radio for communicating with a high density of cell phones in a computationally cheap manner while utilizing WiFi for local, high bandwidth applications. The technology implements many “micro-cells” in lieu of the current macro cell approach to cellular coverage, blanketing the area with a high number of towers. This decentralized approach provides high reliability even if one or several nodes fail. This project will develop the algorithms necessary for interconnecting large numbers of base stations together and mesh the networking capabilities that provide radio links between each base station. Finally, this project will finalize the mechanical design and make the base station manufacturable at large scale.